Molecular Genetics and Biochemistry of Reproduction in the Family Tenebrionidae

This award provides funds to the Department of Biochemistry at Alma College to initiate a summer undergraduate research experience for eight students. A substantial portion of participants will be recruited from Stillman College, a historically black institution. Participants will learn modern methodology in the areas of molecular genetics and insect reproductive biochemistry of flour beetles in the family Tenebrionidae. Students will progress from work on a common project (polyacrylamide gel electrophoresis) to independent investigations involving techniques such as: ELISAs, Western blotting, immunohistochemistry, DNA purification, DNA compositional analysis, genomic library preparation and screening, and gene sequencing. Special attention will be given to enabling the students to become expert in a few techniques while understanding the ramifications of all techniques used in the project. Each student will be responsible for integrating all data generated through the above techniques for a particular species under their care culminating in a written report. Weekly meetings involving all participants will maximize scientific data exchange, and cooperation among research peers. In addition to the laboratory component, participants will be exposed to scientists as role models during site visits to local industrial and academic locations. Additional scientists will be brought to Alma College for in-depth discussions concerning scientific careers and their professional preparation. As a part of the follow-up process, contact with students will be maintained and assistance will be offered with career choices throughout the subsequent academic year.